Instrumentation for Computer-Based Detection and Imaging of Biological Samples

Curtiss Computer assisted analysis has evolved to a point that access to several advanced technologies is, or soon will be, indispensable for the conduct of modern biological research. Advances in the sensitivity ranges of isotopic detection and the ability to digitize, record and analyze data has reached the level where computer assisted acquisition, analysis and storage of data is no longer a luxury but a necessity required by those wishing to remain current and competitive. The Computer-Based Electrophoresis Analyzer and Phosphor Imager will serve as shared equipment to provide the primary functions of data acquisition, analysis, and storage for members of the Department of Biology. Increased sensitivity of isotopic detection and digitization of a wide range of sample media have resulted in the chance to explore questions previously considered unanswerable due to limitations of detection methods. These technological advances in turn provide a formidable amount of data which can often overwhelm manual analysis and even traditional software programs. The goal of these proposed acquisitions is the efficient use by the maximum number of participating scientists of instruments which cannot be afforded in individual laboratories. Funds are requested to purchase (i) an Optical Electrophoresis Analyzer, consisting of CCD Camera, workstation, and accompanying software, and (ii) a phosphor imaging system consisting of scanning module, workstation, and accompanying software. The Department will provide other essential equipment, including phosphor storage screens, auxiliary software, and installation of the Ethernet networking system to allow maximum usage of all equipment by those in the Department. The equipment will be supervised by Drs. Roy Curtiss III and Robert Landick. Use by graduate students, post-doctoral associates, and faculty will be scheduled so as to make maximum use of the equipment to advance research progress by all participants.